Synthetic and Structural Studies of Didehydropeptide Natural Products

9321233 Toogood The focus of this research wil be to determine the biosynthesis of lanthionine and to synthesize the two natural products motuporin and keramamide F. The research will lead to a better understanding of the function of didehydropeptides in natural products. %%% With this award, the Synthetic Organic Program is supporting the research of Dr. Peter L. Toogood of the Department of Chemistry at the University of Michigan. Professor Toogood will focus his work on the synthesis and structure of several didehydropeptide natural products and study the possibility of building these residues into synthetic peptides and peptide mimics. ***